Presidential Young Investigator Award: Chemical Engineeringof Complex Reaction Systems

This research seeks to develop a chemical modeling approach to the reaction engineering of complex reaction systems, such as lignin pyrolysis. The objective is aimed at the elucidation of the reaction pathways, kinetics, and mechanisms underlying the lignin pyrolysis. This chemical modeling work focuses on well-characterized model systems (e.g. model compounds) that mimic the key structured aspects of the actual complex systems. Experiments and analyses of the model systems will follow. The model obtained from this study will be helpful for lignin pyrolysis process design, control and optimization.